Dissertation Research: Tracing Hohokam Ceramic Exchange in the Lower Salt River Valley, Arizona

Under the direction of Dr. Keith Kintigh, Mr. David Abbott will collect data for his doctoral dissertation. He will analyze a series of ceramic sherds collected from a number of Hohokan archaeological sites located in the Lower Salt River Valley of Arizona. These materials will be examined by electron microprobe analysis to analyze the nature of the clay and temper material. Previous work by Mr. Abbott has shown that Hohokam manufactured pottery from raw materials which were available in the immediate vicinity of production sites. It has also demonstrated that substantial variation of both clay and sand used for temper occurs across this region and therefore it is possible to determine the general location in which individual ceramics were manufactured. Given these data it is then possible to use archaeological materials to reconstruct prehistoric Hohokam trade patterns and, in a more indirect fashion, determine exchange networks and spheres of social interaction. The Hohokam are typical of many Southwestern U.S. prehistoric groups because they developed a complex, highly organized society which both emerged and declined well before the arrival of Europeans in the New World. Because they lived in an arid desert environment, the Hohokam constructed complex irrigation systems and archaeologists have speculated that the need to distribute water and maintain control over these systems led to the rise of this complex society. However, it is unclear how villages related to each other or how different sections or compounds within single settlements interacted. Given changing settlement patterns over time, archaeologists have also speculated on how social organization concomitantly varied. Through an examination of ceramic exchange, Mr. Abbott hopes to gain insight into this process. This research is important for several reasons. It will provide new data on the Hohokam which will interest a number of archaeologists. It will help to pioneer the development of new analytic techniques and assist in the training of an extremely promising young scientist.